CO-AMP Phase III

A-1
Louis Stokes Colorado Alliance for Minority Participation
CO-AMP Phase III Project Summary
Colorado State University (CSU) in collaboration with the University of Colorado at Boulder, Fort Lewis
College, Colorado State University at Pueblo, Metropolitan State College of Denver, the University of Colorado at
Colorado Springs, the University of Colorado at Denver, Colorado School of Mines, Adams State College, Trinidad
State Junior College, Pueblo Community College, Din College, AIMS Community College, four tribal nations, and
industry constitute part of the CO-AMP consortium that was formed in 1995/96. The consortium is proposing COAMP
Phase III that will undertake a comprehensive effort to address the following activities in connection with
under-represented students in Science, Technology, Engineering, and Mathematics (STEM) disciplines:
Recruitment, retention & leadership programs
Longitudinal tracking
Summer outreach programs Graduate school placement
The primary goal of the LS CO-AMP Phase III Proposal is to continue increasing the number of
underrepresented minority students successfully completing baccalaureates degrees in STEM disciplines in
Colorado.
Phase III of CO-AMP will build upon the momentum and the success of LS CO-AMP, which began in
1995. The underrepresented students (Hispanic, African American, Native American, and Pacific Islanders) who are
enrolled in the undergraduate STEM degree programs at the participating institutions will benefit greatly from the
proposed activities. The efforts of the Consortium will extend from the pre-freshmen level to enrollment in graduate
school programs. The CO-AMP consortium has been the major driving force at the institutions involved since 1995
to encourage and motivate students to excel and graduate with a B.S. degree in the STEM fields. The enrollment and
visibility of diverse students has increased at the participating institutions which is demonstrated by the 68%
increase in the LS CO-AMP enrollment since its inception. Student performance in their respective disciplines has
improved tremendously. A significant level of support, in addition to that from the NSF, has been provided by the
central administrations, the Departments and Colleges of the Consortium institutions, Industry, and the Colorado
Institute of Technology. Very importantly, the faculty and staff members of the Consortium institutions have
provided essential support without which the activities of LS CO-AMP could not have been so successful. CO-AMP
participating institutions, industry, tribal councils and the Colorado Commission on Higher Education are expected
to continue their support of the project from 2006 to 2011. The success of this consortium will continue to be shared
with the other LS AMPs in the nation. In addition, CO-AMP will work with the Alliance for Graduate Education
and the Professoriate (AGEP) to place more underrepresented students in STEM graduate studies.
By linking the resources of the Consortium institutions and partners and by continuing ongoing efforts to
solicit funding from all available sources, LS CO-AMP will continue to promote institutionalizing the successful
programs it has developed within the Consortium institutions. This is essential to assure that the benefits to
students, which occur from these programs, continue after funding from the NSF is no longer available.
Intellectual Merit
Colorado LS CO AMP is looking to continue increasing the number of underrepresented undergraduate
students graduating with a Bachelors Degree in STEM disciplines. In addition, LS CO-AMP Phase III is planning
to matriculate underrepresented (UREP) students into graduate school to ensure a future balance of the
representation of minority students in STEM graduate disciplines. During Phase III, the Consortium will work
toward institutionalizing and sustaining its program activities after the NSF Funding expires. LS CO-AMP has had
considerable success during Phase I and II, and the Consortiums success will be amplified during the proposed LS
CO-AMP Phase III project. The anticipated successful collaboration with the Colorado Commission on Higher
Education, the legislature, and congressional representatives, will strengthen the sustainability of LS CO-AMP in the
State of Colorado.
Broader Impact
Through the assessment of the activities and the collaboration of LS CO-AMP with other alliances such as
AGEP, McNair Scholarships Program, and Rocky Mountain Middle School Math Science Partnership, LS CO AMP
plans to increase awareness of cultural differences and necessary institutional changes to positively sustain support
of UREP STEM undergraduate and graduate students after NSF funding expires. Moreover, the results of the Phase
III programs and activities will add substantially to the understanding of the issues and the challenges of UREP
students in graduate and undergraduate STEM disciplines. The focus of LS CO-AMP Phase III is to continue the
recruitment and the retention activities of Phase I and Phase II, as well as to matriculate the UREP undergraduate
students into graduate school. This commitment to graduate education will produce more UREP STEM faculty
members who, in turn, will help in bringing more diverse students to the classroom. It will also enable effective and
sustainable institutional transformation to enhance diversity in STEM disciplines. In addition, this diversity
commitment will improve the overall climate for UREP students in the State of Colorado and nationwide.